Aerodynamics and Aeroelasticity of Civil Engineering Structures

Long-span cable-stayed bridges are subject to aeroelastic effects because of the configuration of the bridge deck cross-section and the varying velocity and direction of the wind forces. This project will determine the aeroelastic characteristics of various cross-section profiles and establish scale effects for future research investigations.